Acquisition of a Surface Plasmon Resonance Biosensor

Identifying and understanding the basis for interaction of biologically significant molecules forms one of the cores of modern biology. Associative phenomena such as those between cells, receptors and ligands, regulatory subunits and catalytic subunits, inhibitors and activators with enzymes, and individual components with macromolecular complexes are fundamental to cellular function. Instrumentation to study these interactions has constantly evolved. Application is made here to for the purchase of a BIAcore from Pharmacia Biosensor, one of the newest generation instruments for the interacting molecules. The BIAcore uses surface plasmon resonance (SPR) to assess changes in refractive index very close to a gold surface. By coating the gold surface with a hydrophilic dextran matrix, specific ligands can be immobilized on the sensor chip using various alternative chemistries. Binding of biomolecules form solution in a flow cell to the ligand can then be scored by SPR. The BIAcore allows real time analysis of the binding interaction, permitting the derivation of both kinetic and thermodynamic constants and, because the change in refractive index is directly proportional to the change in absorbed mass, allows determination of the stoichiometry of the interaction as well. Covalent coupling of the ligand to the sensor chip allows convenient regeneration and, combined with the use of a flow call, also allows the study of sequential binding interactions. The BIAcore is remarkably sensitive, usable measurements can be made with as little as little as 50 l of a 0.1 nM soluation of the molecule of interest. The system is fuly automated and computerized and therefore capable of sustaining a high through-put. The PI, four CO-PI's, and three major users will use the BIAcore to analyze molecular interactions that are crucial to cellular processes as diverse as DNA replication and protein trafficking. Studies are proposed to investigate: i) the protein-protein int eraction between primase and DnaB (the replication fork, ii) how various eukaryotic replication fork components associate, iii) how type 1 topoisomerases bind to DNA, in) the protein-protein interactions required for molecular chaperones of the heat- shock protein families to assist in protein folding, v) the protein-protein interactions required for proper recognition during vesicular transport in the cell, vi) the effects of ligand binding on homo and heterodimerzation of vitamin D3 and retinoid receptors, vii) the extent to which binding affinities and specificites of cadherin extracellular domains contribute to cadherin-dependent cell recognition, and viii) the protein-protein interactions that are crucial to TGF- signal transduction.